Engineering Research Equipment Grant: Nondestructive Testing

One four-channel acoustic emission system, one acoustic emission simulator and two 80386-based computers will be used to study advanced ceramic matrix composites and laminated safety glass. Acousto-ultrasonic stress wave factor measurements of undamaged and damaged ceramic composites and laminated safety glass will be related to their corresponding fracture strengths. The eventual objective of these studies is to develop a nondestructive testing procedure for ceramic composites and safety glass.